Interactions Between Thermal Shock Waves and the Free Surface or Material Interface

This research develops the theory of thermal shock phenomena induced by a rapidly moving heat source or a propagating crack tip, (a moving origin) for a two- and three-dimensional situations. The emphases are placed on the effects of a free surface and an interface between dissimilar materials. A thermal Mach number (M) weighing the ratio of the speed of the moving origin (v) to the heat propagation speed (C) in the solid is introduced to characterize the thermal shock phenomena. Mathematically, M = v/C. In the subsonic range with M < 1, detailed comparisons with the classical diffusion theory will be made to reveal the limitations of the Fourier's law in describing the thermal response of the material under high rates. At the transonic stage with M = 1 and in the supersonic range with M > 1, the salient features to be studied include the formation of the thermal shock waves, evolution of the heat affected zone versus the thermally undisturbed zone in the physical domain, discontinuous variations of the thermodynamic quantities across the shock surfaces, reflection and refraction patterns of the thermal shock waves when penetrating through the material interface, and the swinging phenomena for the variations of the temperature level around the moving origin with the thermal Mach number in transition from the subsonic to the supersonic ranges. The theory also has direct application to thermoelastic displacement potentials and to thermal stress fields. Both temperature- and flux-formulations will be examined for the proposed phenomena, and an analytical method involving the hypo-variable transformations will be employed throughout the analysis.